Mathematical Sciences: Finite Groups and Braid and Mapping Class Group Monodromies in Complex Geometry

This award supports the research of Professor Boris G. Moishezon at Columbia University. It is a three year continuing grant made jointly by the Algebra and Number Theory and Geometric Analysis Programs in the Division of Mathematical Sciences. Although he is not old, Professor Moishezon is considered one of the "old masters" in transcendental algebraic geometry. This is the area where the sets of zeros of systems of polynomial equations are studied from the point of view of their geometric and topological properties. He continues to obtain very original and insightful results about them. The research during this grant will undoubtably carry on this fine tradition.